Computer Interfaced Experiments for General Chemistry and Physical Chemistry Laboratories

ABSTRACT: Computer interfaced experiments are being introduced into the general chemistry and physical chemistry laboratories. Six experiments are being introduced into general chemistry involving computers interfaced with sensors for the gathering of experimental data. Temperature probes, colorimeter interfaces or pH meter interfaces designed by project SERAPHIM staff are being used. Lotus 1-2-3 and Lotus Measure are serving as templates at the introductory level. Experiments include chemical kinetics; calorimetry and heat of reaction; molecular weight from freezing point depression; computer driven titration to measure equilibrium; gas chromatography; and statistics and error analysis. In physical chemistry the students are doing advanced aspects of some of these same experiments as well as using the computers for analysis atomic and molecular orbitals through display of wave functions and the consideration of changes in bond length. The grantee is matching the award from non-Federal sources.